Research Related to the National Reconnaissance Office (NRO) Membership in WICAT

The University of Virginia WICAT research site focuses on technology to support Rapid Configuration of Wireless Systems. The proposed research plan will focus on two activities important to serving mobile users in a large enterprise that requires user security. The proposed research relates to the special interests of the National Reconnaissance Office who is a member of the WICAT I/UCRC at the University of Virginia.

A successful completion of the proposed research will make a significant contribution to improving the knowledge base for secure mobile computing. The proposed activities will provide all sites with an expanded set of data and results to complement their component technology results. The proposed effort will also broaden currently provided opportunities to achieve greater diversity by creating additional invited student interactions across the WICAT research institutions.